Matrix Inequalities in Engineering and Science

Matrix Inequalities in Engineering and Sciences (DMS 9704534) Chi-Kwong Li and Roy Mathias The theory of matrix inequalities has applications in many fields including electrical engineering, statistics, economics, psychology, graph theory, differential equations, operations research and optimization, operator theory, quantum physics, numerical analysis and control theory. However, many researchers in these areas are not able to use the existing results and proof techniques in matrix theory to develop their theory effectively because their expertise is not in matrix theory and there is a lack of communication between them and researchers on matrix theory. The principal investigators have considerable experience in matrix inequalities and have developed from scratch, adapted, or borrowed many techniques to study the subject. In this project, they plan to develop and apply the theory of matrix inequalities to different problems that arise from applications. In particular, the emphasis will be on proving matrix inequalities by conceptual rather than computational techniques, and putting them in more general and accessible settings, so that the results can be readily used by non-specialists. It is worth mentioning that this project has strong connections with a number of areas of Federal strategic interest. For example, in high-performance computing, one needs to be able to do computation efficiently and accurately. In many situations, computations are very sensitive to round-off error introduced by the machine itself. The design of fast convergent methods in these cases is greatly facilitated by the theory of matrix inequalities. As mentioned in the first paragraph, matrix inequalities are important tools in control theory, a regime that is crucial to the design of manufacturing plants, aircraft, automobiles, etc. Applications of matrix inequalities in other subjects, including quantum physics and semi-definite programming are proposed , and problems arising in economics, statistics and psychology will also be considered.